NSF East Asia and Pacific Summer Institute for FY 2012 in Singapore

This action funds Dacotah Michael Melicher of North Dakota State University to conduct a research project, entitled "The evolutionary origin of appendages in sepsid flies," during the summer of 2012 at The National University of Singapore in Singapore. The host scientist is Dr. Rudolf Meier.

The Intellectual Merit of the research lies in the investigation of the evolutionary and developmental origins of a novel, jointed abdominal appendage which appears to have evolved independently in several species of sepsid flies.

Broader Impacts of an EAPSI fellowship include providing the Fellow a first-hand research experience outside the U.S.; an introduction to the science, science policy, and scientific infrastructure of the respective location; and an orientation to the society, culture and language. These activities meet the NSF goal to educate for international collaborations early in the career of its scientists, engineers, and educators, thus ensuring a globally aware U.S. scientific workforce.